MDC: Application of High-Performance Graphics Supercomputers and Communication to Provide Improved Interfaces to Scanning Probe Microscopes

9527192 Taylor The Nanomanupulator (nM) project will investigate the most powerful and efficient systems, methods and algorithm for applying the high-performance graphics supercomputer, Pixel-Flow, to the real-time control of scientific instrumentation. The nM system provides an intuitive interface to scanning probe microscopes (SPMs), allowing scientists from a variety if disciplines to examine and manipulate nanometer-scale structures. The nM displays a high quality rendering of the surface being scanned as the data arrives in real time. using force-feedback controls, the scientists can feel the surface representation to enhance understanding of surface properties and can modify the surface directly. Important proof-of-concept studies have shown that the nM greatly increases productivity by acting as a translator between controlled. This project will study issues which will made the nM a more powerful and accessible tool for the scientific community.